MRI Track 1: Acquisition of an Advanced System for Real-time Measurement and Monitoring of Bioaerosols

This project involves the purchase and setup of a field-deployable, continuous-flow instrument for real-time sampling and characterization of bioaerosols. Applications to potentially be advanced through the acquisition of this instrument are (1) bioaerosol, including pollen, lifecycle studies in grassland and forested ecosystems; (2) pathogen transport studies, including indoor settings, agricultural lands, and dusty regions; (3) biological ice-nucleating particle typing and identification; and (4) identification of airborne microplastics and other novel particles in lab and field studies. The project provides training opportunities for students and early career researchers, and a team of collaborators has been identified who will utilize the instrument.

Lack of adequate technology has been a limitation in characterizing atmospheric bioaerosols. It is anticipated that the acquisition of the SwisensPoleno Jupiter instrument will provide new insights in this underexplored area. The instrument combines state-of-the-art measurement methods with artificial intelligence databases for automatic particle identification. The sensor train includes optical sizing, fluorescence, polarization, and holography. The instrument operates at a high flow rate and is non-destructive, enabling its coupling to other continuous-flow devices for further single-particle characterization, or collection onto substrates for microscopy or bulk analyses.